Network Alternatives for Public Libraries as Information Resource Centers for Science Education/Literacy Workshop

This project will develop a strategy to support the use of the Internet by public libraries in support of national science education and literacy goals. The workshop will bring together representatives of the library, regional NSFNET networks, and library network communities to explore the use of the Internet as a tool by public libraries. Alternative collaborative models will be identified. Information to guide public libraries will be developed as well recommended action for all parties concerned. The final report and recommendations will be widely disseminated to be used by public libraries to plan their individual strategies for connection to the NSFNET and ultimately take place as major player in the evolving plan for the National Research and Education Network (NREN).